NSF FF: Planning: Co-Designing a Developmentally Grounded AI Literacy Tool for Grades 5-8

This FINDERS Foundry award supports students in grades 5–8 as they learn how to think more carefully about information they get from AI tools. Many early adolescents use AI for homework or personal questions, but they often trust answers too quickly. This project will design tools that teach students how to question AI output, check accuracy, and decide when AI should or should not be used. Educators, families, and students will work together to identify common misunderstandings and help create explanations that fit this age group’s needs. The tools will support healthy decision‑making by guiding students to slow down, compare information, and reflect on their choices. By building these habits early, the project hopes to strengthen students’ confidence, reduce misinformation, and help them use AI responsibly in school and in daily life.

This FINDERS Foundry award supports the collaborative development of wireframes for a student‑facing and a teacher‑implementation module for an AI literacy tool to support learners in grades 5–8. Planning activities will include co‑design workshops, educator feedback cycles, and interviews with parents and students from a variety of educational and technological settings to ensure the designed modules reflects varied spaces of implementation. Drawing on developmental psychology, information‑literacy research, and child‑AI interaction studies, the team define scaffolds for metacognition, evidence evaluation, and socially informed decision‑making to enhance AI literacy specific for grades 5-8. The proposal will outline interaction patterns that help students interrogate AI‑generated outputs, recognize uncertainty, and consider social implications when making decisions. Expected outputs include wireframes, a development‑phase plan, and a conceptual framework that integrates multilingual considerations into AI literacy learning.